RUI: Food Plants of Native America

This project involves a cultural anthropologist from the University of Michigan-Dearborn in the compilation of a data base of Native American knowledge of plants as food. The list will probably include in excess of 20,000 uses of at least 2000 different species of plants, and will be of substantial value in itself. The data base will be analyzed in terms of its relationship to the entire flora of North America (some 20,00 species) and to the medicinal flora of the continent About 2100 species) to see what these different floras share and how they differ. This project is significant because it will make readily available the collected wisdom of generations of Native American people to both specialists and citizens. Second, it will contribute to our understanding of how human beings construct their knowledge of the world, and by comparison with the medicinal flora, how people distinguish plants that heals and nourish us from those that can harm us.